Coordinates of Multisensory Space

9308576 Meredith We interact with objects in the space around our bodies by interpreting visual, auditory, touch, and other sensory signals in a frame of spatial reference. Each sensory modality has its own reference system for central "maps" in the cortex of the brain, with vision using a map centered by the geometry of the retina of the eye, hearing head-centered, and the somatosensory system body-centered. However, generating appropriate behavior for orientation to a stimulus requires some common coordinate system, so that, for example, the eyes turn within the head to look toward the source of a sound from one side. The superior colliculus is a complex structure in the midbrain that is strongly implicated in this kind of spatial orientation. This work provides novel tests for neural mechanisms that could provide a reference system for this sensory to motor integration. Recording activity in alert, behaving animals will clarify how multisensory neurons in deep layers of the superior colliculus integrate combined auditory and visual stimuli. Activity of these neurons will be examined during stimulation of one or more of the motor inputs, to further test how motor commands may shape the response. These experiments will determine if multisensory collicular neurons code sensory space in terms of motor coordinates, and will clarify the relation between unimodal and multisensory frames of reference. This novel approach will enhance our understanding of how the brain deals with the complex sensory environment, and so will have a broad impact on research in many sensory fields, in sensorimotor integration, and in attention and cognition. ***